Measurement of Elastic Properties of Various Materials by Brillouin Spectroscopy at High Pressure

9405579 Heinz The PI will perform laser heating and Brillouin scattering experiments on a range of materials. He will revisit the melting behavior of perovskite and Fe using his new thermal analysis technique to provide better constraints on the thermal structure of the deep Earth. He will also determine elastic velocities in several silicates, oxides and alkali halides in polycrystalline form. These experiments, coupled with seismic observations, will permit a better understanding of the deep structure and composition of the Earth. ****